Transport of Polymers in Confined Geometries

This is a combined experimental and theoretical research effort to study transport phenomena of polymer solutions in microporous media. In all experiments, well-characterized porous membranes and polymeric molecules are used so that results will be amenable to theoretical analysis. the theoretical aspects of this research focus on relating a microscopic description of polymer dynamics to the observable macroscopic phenomena. Models are sought that allow interpretation of the experimental results in terms of molecular characteristics of the polymer molecules. Of primary interest is the extent to which molecular deformation caused by solvent flow and confining boundaries (pore wall) affects transport of polymers in porous media.